Hamiltonian Motions Under Strong Constrains

The project focuses on Hamiltonian ODEs and PDEs under strong constraining
forces. For an given Hamiltonian composed of the kinetic energy and a
potential energy, consider particles restricted to a submanifold
(independent of time) in the configuration space, i.e. a holonomic
constraint. The idealization of the constrained particles' motion is
governed by a Hamiltonian system defined on the tangent bundle of this
submanifold involving geometric notions. In physics, an alternative way to
realize the constraint is to consider the system in the original space
with an extra strong potential which penalizes the distance to the
constraining submanifold. This idea applies to both Hamiltonian ODEs and
PDEs. While the convergence of the motions under strong constraining
potentials to the limit geometric Hamiltonian motions on finite time
intervals has been studied for ODEs, the problem in PDEs is basically
untouched. The project focuses on two questions. The first is the
convergence of the strongly penalized motions, both on finite and infinite
time intervals. The second question is the relation between the dynamics of
the strongly penalized motions and their limits, i.e. the structural
stability under strong constraining forces. The subjects are stability,
periodic motions, homoclinic motions, resonances, etc. The problem can also
be viewed as homogenization or elliptic type singular perturbations.

The problem of motions of particles restricted to submanifolds in the
configuration space appears naturally in both classical mechanics and
PDEs. For example, in classical mechanics, whenever a rigid rod is
considered as elastic with a large elastic coefficient, the problem falls
in this category. Also, it is found, in material science, that some
anti-ferromagnetic systems converges to geometric wave equations
targeted on the unit 2-dimensional sphere formally. Therefore, it is
important to study how the constrained motions converge. Moreover, as the
penalized motions have high frequency oscillations, it is even more
important to investigate the relation between the asymptotic qualitative
behaviors.